REU Site: Applied Demographic Research on Migration

This award provides funds for a Research Experiences for Undergraduates Site in Demographic Research at Western Washington University. Ten undergraduates will participate in "Applied Demographic Research on Migration" for eight weeks. The students, supervised by a project team of professional demographers, will focus their research efforts on the study of migration profiles and analytical models. A variety of data files, including the Public Use Microdata Sample, the 1990 STFs, IPUMS, and the Cumulative General Social Survey will serve as primary data sources for the research experiences.

This award contributes to the Foundation's continuing efforts to attract talented students into careers in science through active undergraduate research experiences.